SBIR Phase I: All Natural Biobased High Performance Composites for Industrial Applications

This Small Business Innovation Research (SBIR) Phase I project proposes to develop workable composites from plant based materials (such as rice hulls, bamboo and jute), using expoxidized soybean oil as a polyurethane bonding resin.

The commercial application of this project will be in the manufacture of household and office furniture. The bio-based composites are expected to be mechanically strong, cost effective, lightweight and resistant to fire and water.